QEIB: Stochastic Nonlinear Population Dynamics: Mathematical Models, Biological Experiments, and Data Analyses

Cushing
0210474
The project entails a theoretical and experimental study
that examines nonlinear population dynamics phenomena in the
context of stochasticity and that addresses fundamental concepts
of how stochastic and nonlinear forces combine to produce
observed population phenomena. The methodology involves an
interdisciplinary effort that features a thorough integration of
biologically based modeling (deterministic and stochastic),
mathematical and numerical analyses of model dynamics, and the
derivation and application of statistical techniques for
connecting models with data (including parameter estimation and
model evaluation). The investigators study the fundamental
question about how (demographic) stochasticity at the individual
level propagates to the population level. A promising class of
models that incorporates both demographic and environmental
stochasticity is pursued. A variety of statistical and
mathematical questions that arise from these studies are
investigated. The validity of this modeling methodology and
accuracy of a priori model predictions is directly testable by
experiments. The project study includes an experimental test of
this modeling approach to demographic and environmental
stochasticity, using a laboratory model that the investigators
have successfully used in a wide variety of population dynamics
and modeling studies during the last decade. The modeling
methodology is also applicable to field populations and the
investigators pursue the development of field studies with
several researchers who have expressed interest in such a
collaboration. These collaborators include colleagues at (1) the
Center for Environmental Analysis at California State University,
Los Angeles in a project modeling the spatially structured
dynamics of seashore species, (2) the University of California,
Davis in a project to model a lupine-caterpillar-nematode system,
(3) Andrews University on mathematical/statistical models of the
distribution of marine birds and mammals on Protection Island
National Wildlife Refuge in the Strait of Juan de Fuca, and (4)
the Virginia Institute of Marine Science on nonlinear models of
the blue crab in the Exuma Cays.
An understanding of the dynamics of biological populations
is fundamental to the understanding of ecological and
environmental problems. Mathematical models can be a valuable
tool that provides this understanding. They can also provide the
means to predict the future of ecosystems and the species that
they include. An accurate descriptive and predictive capability
gained through mathematical models provides not only a basic
understanding of ecological problems, but also the ability to
design programs for the assessment, management, and control of
ecosystems and for the solution of environmental problems. A
fundamental difficulty in the application of mathematical models
to ecological problems has been the lack of a close connection of
models with biological data. A key problem is the ability of
models to incorporate random effects and disturbances. The
investigators extend, analyze, and apply a modeling methodology
they have developed during a decade of experimental studies, in a
controlled laboratory setting, that addresses these difficulties.
The methods are not restricted to laboratory populations,
however, and the project also includes collaborations with new
colleagues for the purpose of applying the methods to field
studies of natural populations.